CAREER: Geometric and Algebraic Model Theory

Scanlon's work integrates arithmetic, geometry and logic via a
model-theoretic study of natural mathematical structures. Specifically,
Scanlon investigates the theory of compact complex analytic manifolds from
a model theoretic point of view and extends this research to related
geometric objects. In developing the theory of jets of differential
equations, Scanlon hopes to discern the fine structure of dependence on
solution sets to partial differential equations of infinite differential
dimension and to present a unified treatment of differential Galois theory
for such equations. Scanlon plans to refine the study of enriched valued
fields and to draw out the Diophantine consequences of these results.
Scanlon works, as well, on purely logical issues and will continue
developing the theory of thorn-independence with an eye towards eventual
applications.

Scanlon's work integrates arithmetic, geometry and logic. Definable sets,
namely those sets definable within a fixed formal language, are principal
objects of study in model theory and this special emphasis has been
instrumental in the success of the model-theoretic approaches to number
theory, algebra and analytic geometry. Scanlon works to tighten the
connection between logical and geometric methods and to find mathematical
interpretations of theorems in logic.